Upgrading an Undergraduate Engineering Technology Process Instrumentation and Control Laboratory.

This project is to set up a process instrumentation and control laboratory within the industrial automation laboratory. Included will be a process control simulation system, consisting of simulators, PID controllers, discrete controllers, programmable logic controllers, and process simulation microprocessors. The laboratory will use industrial grade instrumentation and IBM PC compatible computers to insure maximum versatility and compatibility. The students will thus learn control techniques ranging from PID controllers to discrete systems control using equipment which is found in industry.